Moving Teachers and Students from Arithmetic to Algebraic Thinking in Murphy School District (K-5): Building Multilevel Insight

This research project is grounded in an approach designed from over 20 years of
research on Cognitively Guided Instruction (Carpenter, Fennema, Franke, Levi, &
Empson, 1999). In addition, we will leverage recent work on formative assessment based
on the same cognitive model that drives (Black & Wiliam, 1998a). The formative
assessment based on the work of Black and Wiliam along with CGI are two of the only
programs of research to link professional development to teacher learning to student
learning (Black & William, 2004; Wilson & Berne, 1999). We also leverage multilevel
theory to understand how these programs can effect change on teacher knowledge,
classroom practice, and student learning. Rather than understanding one level, this project
looks to understand how professional development influences the complex interactions
within classrooms and schools that produce important learning gains in mathematics.

The research will be conducted in a high need inner city school district that will
serve as a national model for the evaluation of professional development in mathematics
education. The project will also inform efforts to understand the instructional practices
that promote substantive learning in mathematics for Latino students and English
language learners.